STTR Phase I: AI-Accelerated Simulation Platform for High-Power Fiber Lasers

The broader impact of this Small Business Technology Transfer (STTR) Phase I project is to create an AI‑powered simulation tool that makes it much faster and easier to design high‑power fiber laser systems. This project will remove a major challenge in laser development by cutting down the time needed to model complex optical effects. Using advanced machine‑learning methods, the new technology will help speed up progress in key areas such as defense, manufacturing, and medical devices, supporting U.S. leadership in the global photonics industry. It will also help grow the STEM workforce by offering modern computer tools that can be used for teaching, training, and research.

This Small Business Technology Transfer (STTR) Phase I will explore how machine learning can make the simulation of nonlinear optical effects in high‑power fiber lasers run faster. The work will build an advanced modeling system that combines a “phase‑matched” model of transverse mode instability with machine learning to get past today’s limits on laser design. The key breakthrough is the phase‑matched model, which uses the idea that transverse mode instability acts like a three‑wave interaction, where two optical modes mix with a heat‑based pattern in the fiber’s refractive index. With this approach, the model can use larger step sizes and still stay accurate, allowing much faster calculations. The plan also includes training neural networks to predict laser behavior across many designs and connecting these tools into one complete physics‑based simulation engine. The result will be a flexible computer tool that can model major laser effects more precisely and in far less time. By blending the phase‑matched model with machine learning, this project will greatly reduce simulation time while keeping strong accuracy, enabling quick testing and real‑time design improvements for high‑power lasers. These advances will deepen scientific knowledge about nonlinear processes in fiber amplifiers and create a powerful new platform for future photonics research and engineering.